Focused Research Group: Calabi-Yau Manifolds and their Applications

Abstract

Award: DMS-0074177
Principal Investigator: Michael R. Douglas

This research project brings together a team of mathematicians
and physicists based at three campuses to work together on string
theory. Specific research tasks include the study of the quantum
corrections to the mypermultiplet moduli spaces in theories with
eight supercharges, the structure of the moduli spaces of
heterotic string compactifications, M-theory models compactified
on seven-dimensional spaces whose global holonomy group lies in
the exceptional Lie group G2, M-theory models on Calabi-Yau
fourfolds, and a study of the AdS/CFT correspondence for branes
at singularities.

String theory is a promising candidate for a unifying theory of
the universe at its most fundamental levels. Although the basic
idea is simple - elementary particles should be modeled as
mathematical loops of stgring rather than as points - working out
the details of this theory has involved and inspired some
sophisticated mathematical tools and ideas. The task is by no
means complete, even in an area where the synergy between
mathematics and physics has been particularly productive, the
study of the Calabi-Yau spaces that appear as solutions of the
classical string equations of motion. This is one of three
linked awards to a research group that includes mathematicians
and physicists at Duke University, Columbia University, and
Rutgers University, and NSF funds are supporting this
interdisciplinary group's collaborations through
videoconferencing and travel.